Laser Based Spectroscopy in the Physical Chemistry Laboratory

The Department of Chemistry is purchasing lasers, monochromators and associated equipment to introduce Raman spectroscopy, fluoresence and fast kinetics into the physical chemistry laboratory. Among the experiments involving laser- induced phenomena that the students are performimg are: Raman spectroscopy in condensed phases, fluorescence spectroscopy in gases, and the determination of excited state lifetimes. The equipment is also being used by students engaged in undergraduate research.